Experimental Research on High-Speed Network Problems

9305122 Hughes This is a 12 month Career Advancement Award. The award covers equipment to provide an environment for studying high-speed networking, including priority scheduling of multimedia traffic, congestion control for ATM nodes, task scheduling in distributed environments, and multicast communication and group management. Partial support for research assistants is also provided.